Center for the Synthesis, Growth, and Analysis of Electronic Materials

This award will support the Science and Technology Center for the Synthesis, Growth and Analysis of Electronic Materials at the University of Texas, Austin. The research program of the Center is organized into two thrust areas--compound semiconductors and silicon-based materials. Within each thrust area chemists will synthesize molecular precursors and determine their surface and gas phase reactivities, and engineers and physicists will grow and analyze thin films of electronic materials made from these precursors, and construct and test new devices made from these films. A major component of the research will be the synthesis, purification and surface reactivity measurements of novel precursors, containing group III and group V elements in a single molecule, that have low toxicity and are suitable for film growth by advanced OMCVD and CBE techniques. Electronic materials, and the structures and devices derived from them, lie at the heart of numerous advanced technologies that have strategic and economic relevance. Through an integrated and collaborative research program, which links scientists and engineers at the University with scientists and engineers at Sandia National Laboratory, Texas Instruments Inc., and Motorola Inc., the Center will develop and demonstrate new concepts for electronic materials, structures and devices, which will lead to smaller, faster and more densely integrated electronic devices with tailored optical and electronic properties.